CAREER: Growing Together: Shaping Peer Culture to Boost STEM Motivation and Retention

The Faculty Early Career Development (CAREER) Program funds prestigious awards to support high potential early-career faculty in research and education work that advances STEM and STEM education in alignment with their organization’s mission and national priorities. The project titled “CAREER: Growing Together: Shaping Peer Culture to Boost STEM Motivation and Retention” awarded to and led by faculty members from Texas State University San Marcos, will study the influence of peer interactions on students’ growth mindset and retention in STEM. Using classroom observations and daily diary entries analyzed with natural language processing tools, the investigation will uncover peer cues and their relationship to students’ academic experiences. Findings will be used to develop an intervention that shifts classroom interactions to positively shape growth mindset with the goal of improving STEM retention. Findings will be broadly disseminated through open-access toolkits, faculty development workshops, academic publications, a national symposium, and public-facing venues to broaden the reach and societal impact of the work.

This project advances the field by introducing peers as novel social agents and examining how peer beliefs and behaviors contribute to mindset culture. This project will break new ground by identifying specific peer behaviors and daily interactions that signal fixed versus growth mindsets using AI-powered natural language processing and diary methods in real classrooms. This work will test the influences of peer norm interventions in authentic educational settings, laying the groundwork for a more socially contextualized theory of motivation and informing the design of evidence-based practices. This project contributes to national efforts to improve undergraduate STEM retention by developing a multi-level intervention that is low-cost, scalable, and grounded in the social dynamics of the classroom.